Mathematical Sciences: Continuous Complexity and Dynamics

The P. I. will do research on the complexity theory of continuous problems and dynamical systems. The research involved is of interest to a large class of mathematicians and has implications for the relations between abstract mathematics and computer sciences.